Summer School on Cyber-Physical Systems

This award supports the first Summer School on Cyber-Physical Systems, held at the Georgia Institute of Technology, Atlanta, Georgia, June 22-25, 2009. NSF funds support outreach and enable the participation of US graduate students and early career faculty in this international event.

Cyber Physical Systems (CPS) are systems that rely on a tight integration of computation, communication, and controls, for their operation and interaction with the physical environment in which they are deployed. Such systems must be able to operate safely, dependably, securely, efficiently and in real-time, in potentially highly uncertain or unstructured environments. CPS are expected to have great technical, economic and societal impacts in the near future.

The objective of the Georgia Tech Summer School on Cyber-Physical Systems is to establish a forum for intellectual exchange on CPS science and technology for researchers from industry and academia. The format of the Summer School is a five-day meeting, organized around the different aspects of Cyber Physical Systems. The topical areas covered include: formal methods, distributed embedded systems, networked control systems, embedded software, scheduling, platforms, and applications.